Oceanographic Instrumentation

9530674 Walden This proposal requests funds for general use oceanographic instrumentation to be used in support of research conducted aboard the three research conducted aboard the three research vessels operated by the Woods Hole Oceanographic Institution (WHOI). The items requested are shared-use and will be available to all scientific investigators using WHOI ships. Additionally, equipment required for use aboard other UNOLS vessels will be made available on loan whenever feasible. ***